Collaborative Research: Infusing Authentic Research in the Introductory Biology Curriculum-A Multi-Institutional Study

Authentic research experiences in research laboratories run by professors do a far better job of developing students' research skills and improving student retention in science than traditional laboratory experiences associated with a course. This is particularly true with groups who traditionally have not entered science fields. Authentic research experiences provide motivation to learn the research skills and demonstrate rewards in solving research problems. CUREs (Course-based Undergraduate Research Experiences) have been created to provide all science students with a real research experience. However, little is known about the impacts of CUREs on student research skills and retention in science. The University of Northern Colorado has developed an introductory biology CURE based on Tigriopus californicus, a small marine organism, and initial results indicate the CURE increases students' content knowledge and improves their motivation towards learning biology, both of which have been shown to increase retention. This project will expand the CURE to three different institutions: a Liberal Arts University; a large, Hispanic-Serving Research University; and a small, Women's Minority-Serving College. Using these diverse student populations, this project will determine if the CURE improves students' content knowledge, research skills, motivation towards learning biology, and retention in biology.

Most research conducted on CURE student outcomes relies heavily on student self-reported learning gains, has been completed with self-selected student populations, and has not been conducted with student populations who are underrepresented in the STEM disciplines. The proposed project will enhance and expand current knowledge by adding to the existing CURE research including: (1) testing aspects of a recently developed CURE impacts model; (2) the exploration of CURE impacts on students' experimental design skills, motivation, science identity, and persistence in science; and (3) the examination of the impacts of CUREs on diverse student groups, including minorities and first-generation students. This project will also greatly expand our understanding of Tigriopus californicus, about which very little is currently known despite its important place at the base of the marine food chain. Finally, this project will potentially broaden participation of underrepresented groups in the biological sciences.